Twenty Fourth Southern-Atlantic Regional Conference on Differential Equations

Abstract
Belinskiy

The objective of this project is to promote research and education in the field of differential equations by providing for the participation of approximately 30 beginning researchers (advanced graduate students and recent Ph.D. receipients) in the Twenty.Fourth Southeastern.Atlantic Regional Conference on Differential Equations. The 2004 Conference will be held at the University of Tennessee at Chattanooga on October 22.23. This series of conferences has become a firmly established tradition in the Southeastern.Atlantic differential equations research community. The conference attracts some of the top experts in the field who attend the conference each year.